Chlorophyll b Synthesis and Formation of Light-Harvesting Complexes

We developed a unique system with which to examine the biogenesis of chloroplast thylakoid membranes. A major complex of the thylakoid membrane is the light-harvesting chlorophyll (chl) a/b- proteins complex (LCH-2). Formation of this complex during development of the chloroplast in the alga Chlamydomonas reinhardtii y-1 can be measured after exposure to light. Electron microscopy of such cells has revealed that the site of initial assembly of the membranes is at the level of the chloroplast envelope. The project will focus on the Chl-binding apoprotein of LCH-2 (LCHP), which will be studied to determine the site and mechanism of integration of the protein into the membrane and interaction of the protein with Chl. Oligonucleotide-directed mutations will be generated in the cabII-1 gene encoding this protein. After transformation, cells will be isolated that express the mutant gene. The fate of the wild-type and mutant LCHPs will be examined kinetically in an in vivo context. These results will markedly enhance understanding of membrane assembly. Biological membranes are essential to life. They form a barrier between the cell and the environment and also divide the cell into various compartments with specialized functions. The maintenance of differ environments on different sides of a membrane are essential for respiratory energy production in organelles known as mitochondria and for chemical energy production from light during the process of photosynthesis in organelles known as chloroplasts. The ability of these specialized membranes to carry out these essential functions is based on the complex structure of the membranes which includes complexes of lipids, proteins, pigments and low-molecular weight electron carriers. This proposal will address the fundamental question of how such complex membranes are assembled.//